NSF Minority Postdoctoral Research Fellowship for FY-1997.

Award Abstract Fellow: Manuel B. Sainz Proposal number: DBI 9707853 This action funds an NSF Minority Postdoctoral Research Fellowship for 1997. This fellowship supports research and training in the area of integrative plant biology and genetic mechanisms. The title of the research and training plan is "Identification and characterization of genes required for plant disease resistance." The signal transduction pathway for plant disease resistance links pathogen recognition to increased expression of defense genes. The goal of this research is to isolate components linking the events of disease resistance in Arabidopsis thaliana resistant to Pseudomonas syringae mediated by the pathogen avrRpt2. The disease resistance response is being characterized in isolated mutants and the novel genes involved are being cloned.